Magnetoresistive Wafer Scale Memory with On Board Search/ Cache Functions

Wafer scale, nonvolatile, magnetorsisitive memories with parallel search capability and caching capability are being analyzed and experimentally verified in this project. Because magnetoresistive memories are nonvolatile, are very dense, and can be made very fast, they are well suited for storage of large nonvolatile files such as those in data bases. The inclusion of searching hardware on each active die of a wafer can speed up search by a factor of 10,000. In addition, on-board caching can speed up general purpose read-write operations, allowing the wafer scale memory to replace all components of a contemporary memory hierarchy. In this project, an optimum allocation of chip area to memory, cache, and search hardware is being determined. Power and bus performance for a typical system is being verified experimentally.